Upstate Alliance for Innovation

0090569
Boyd

This award is to the Rochester Institute of Technology to support the activity described below for 27 months. The proposal was submitted in response to the Partnerships for Innovation Program Solicitation (NSF 0082).

Partners
The partners for the award include Rochester Institute of Technology; the City of Buffalo; the City of Rochester; High Tech of Rochester; IP.com; State University of New York at Buffalo; University of Rochester; Western New York Technology Development Center.

Proposed Activities
The activities of this award include creation of an infrastructure for commercialization; creation of business start-ups; encouragement of academic patenting; establishment of regional practices to foster innovation; training of entrepreneurial experts who understand intellectual property, formulation of business start-up models; and development of community economic development resources; establishment of the infrastructure to connect university researchers, administrators, technology transfer offices, business builders, and venture capitalists to enable the innovation process.

Proposed Innovation
The innovation goals are to build the infrastructure to enable innovation connecting the universities to all of the other key elements in the innovation process; to train leaders in innovation; to start new businesses to create regional wealth.

Potential Economic Impact
The potential economic outcomes include increased patents and business start-ups (10-15 new ones); increased collaborative research; assessment of invention potential; education on intellectual property.

Proposed Societal Impact
Potential benefits to society include creation of new jobs and new regional business; involvement of under-represented groups in leadership positions in the economic enterprise of the region.